US-Sri Lanka Planning Visit: Determinants of Inter- and Intraspecific Diversity in Tropical Carnivora

0002660
Ratnayeke

Description: This award supports a planning visit by Professor Shyamala Ratnayeke, Department of Biology, Spelman College in Atlanta, Georgia. She plans to visit Sri Lanka in the summer of 2000 to do preliminary field work and to develop plans for future field research with Dr. Charles Santiapillai, Zoology Department at the University of Peradeniya in Peradeniya, Sri Lanka, and with officials of the government of that country. The topic is the inter and intra-specific diversity in animals, with applications for the allocation and management of protected habitats for carnivores, especially for sloth bears. Spelman College is a primarily undergraduate institute, and this award will provide the PI with a unique opportunity to develop a viable collaborative research proposal in an area of interest to the programs of NSF Division of Environmental Biology. The proposal meets INT objectives for supporting planning visits when they are essential for developing international collaboration.